REG: Picosecond Laser System in the Near Infrared

This is an Engineering Research Equipment Grant for purchase of essential equipment to establish a laser system for ultrafast near- infrared laser spectroscopy. The purpose of this system is to generate picosecond or subpicosecond laser pulses tunable in the 1-um to 2-um near-infrared spectral range to investigate the dynamical processes in high-speed electronic and optoelectronic devices and materials based on III-V and II-VI compound semiconductors whose bandgaps are in the near-infrared range. One specific project will investigate the dynamical evolution of the carriers, the gain, and the lasing processes in a InGaAsP/InP laser under mode-locking or pulsed current switching operation. In another project, systematic studies will be carried out on the optical and electronic processed in novel structures of HgCdTe materials uniquely prepared with a laser- evaporated molecular-beam epitaxy technique.